Field and Model Studies of the Hydrologic and Structural Evolution of Faults in Granitic Rocks in the Upper Crust

Understanding the hydrology of faults and shear zones is critical to determining how fluids move through the crust and to examining the fluid-rock interactions that occur during flow. This project will examine faults in granite to obtain evidence needed to assess spatial and temporal changes in fault zone permeability during fault evolution. The permeability structure will be incorporated into a numerical model for flow at both fault zone scale and at regional scales. Results should strengthen observational and the theoretical basis for assessing the role of fluids in a variety of tectonic processes.